U.S.-Chile Cooperative Science Program: Ionic and ReductantFactors Effecting Vesicle Acidification and Iron Mobilization

9224245 Glass This Americas Award will support collaborative research between Drs. Jonathan Glass, Louisiana State Medical Center, and M. T. Nunez Gonzalez, University of Chile, on the exploration of the cellular mechanism of iron uptake. The focus of this research is on the biochemical analysis of the events required for iron delivery from transferrin, with the ultimate aim of elucidating the mechanism of iron transport. The laboratory on the Chilean side will focus on utilizing rabbit reticulocytes to obtain detailed analyses of iron mobilization via the regulation of vesicular pH by ionic fluxes, while the laboratory of the principal investigator will determine mobilization rates as a function of ionic composition and membrane potential. Results of the research will contribute to a better understanding of the fundamental aspects of human cellular metabolism. ***